The Panulirus Hydrographic Stations Years 43-47

Knap 9617785 It is proposed to continue the now 41 year long time series of the deep (3000 m) ocean hydrographic station near Bermuda known as Station S or the Panulirus Station. Data collected to date have used by investigators in several disciplines to examine fluctuations at periods from weeks to decades in the western Atlantic Ocean. This continuous and on-going data set has proven to be an important link in global ocean monitoring for both climate research and for evaluating temporal changes of many parameters.